Summer Undergraduate Research in Molecular Biology

This award provides funds to the College of Biological Sciences are the University of Minnesota to continue a successful REU Site. Each summer, 10 undergraduate students will be selected from a pool of 500-700 applicants to spend ten weeks completing an independent research project under the direction of one of the 27 faculty mentors affiliated with the program. At least half of the participants will be students of color and at least half will be from institutions other than the University of Minnesota. mentors in this program are basic scientists who have a common interest in research using Recombinant DNA technology. The students' research experience will be supplemented by weekly student seminars and a concurrent mini-course in Molecular Biology. The course will cover basic principles of prokaryotic and eukaryotic gene regulation and will provide students with the most current information on specific topics as well as background terminology and concepts. All students will prepare a summary of their research project in the form of a display for a poster session at the conclusion of the program.